WHP Pacific ADCP Analysis and Synthesis

Firing 9730953 The direct velocity measurements collected under the hydrographic program of the World Ocean circulation Experiment (WOCE) will be combined together with other observations to provide a complete description of the ocean current field in the Pacific. Both shipboard and lowered Acoustic Doppler Current Profiler (ADCP) data will be used in regional and basin-wide analyses. The observations will be compared with the out put of general circulation and tidal models to assess the temporal context of the observations.